Minority Engineering Education in the United States, 1945 to the Present

SES 0115208
Amy Slaton, Drexel University
Minority Engineering Education in the United States, 1945 to the Present

Despite ongoing governmental and institutional attempts at diversification, African
Americans and other minorities remain severely underrepresented among university
graduates in engineering fields. Many quantitative studies have measured this inequity
and the impacts of individual educational reforms, but few scholars have explored
historical or epistemological patterns behind the successes and failures of diversification
efforts. Using archives, artifacts, and approximately 35 interviews with engineering
instructors and graduates, this project compares engineering education in American
universities attended primarily by black students and white students since 1945 to
establish such an overview.

Based on four pairs of schools, representing each of four states and four historical
eras, this study describes the broad political conditions in which these universities
functioned, and provides detailed accounts of practices within their engineering
classrooms and laboratories. The cases of Lincoln University (Missouri) and the
University of Missouri will illustrate conditions during the science and engineering
"manpower" crisis immediately following World War II. Technical programs at
Maryland State College and the University of Maryland will illustrate the impacts of
integration as separate-but-equal doctrines fell away in the 1950s. The histories of two
urban schools, the Kennedy-King College and Illinois Institute of Technology in
Chicago, will reflect the coalescence of civil rights activism and legislation in the 1960s
and 1970s; and comparisons of Prairie View and Texas A&M Universities will document
the ascendance of political conservatism and a "post-industrial" economy in the 1980s
and 1990s. Engineering curricula and course materials varied greatly among these
settings, and this project treats post-secondary technical education since 1945 as both a
reflection of prevailing social ideologies about race and a shaping force of those values.
It explores, overall, the uncertain connection between technical and social modernity in
contemporary America.